Cleavage and Formation of C-S and C-N Bonds in Heterocyclic Compounds by Homogeneous Transition Metal Complexes

Professor William Jones of the University of Rochester is supported by the Inorganic, Bioinorganic and Organometallic Chemistry program to develop synthetic and mechanistic aspects of reactions that cleave or form C-S or C-N bonds in heterocyclic molecules. The sulfur portion of the project is driven by hydrodesulfurization and hydrogen storage applications. Work with nitrogen is focused on C-H bond activation in arylimines as a methodology for heterocycle synthesis.

The broader impacts of this project include deep hydrodesulfurization reactions of importance industrially. The program is expanding the diversity of science students through formal programs in place at the University of Rochester, and the project involves an array of interactions with high school students, undergraduates, graduate students and faculty at four year colleges.